Formation Reaction and Properties of the Lignin Graft Copolymers (Materials Research)

The formation reaction and properties of lignin graft copolymers are studied. The objectives of the research are: to understand the initiator and the initiation process of grafting of 2-propenamide to kraft pine lignin; to identify the grafting site and measure grafting frequency; to determine how physical, chemical and solution properties of the product vary as a function of the reaction variable; to produce lignin graft copolymers with other monomers; and to correlate the gathered data with pattern recognition processing. The lignin graft copolymers will be used in water purification, soil stabilization, well drilling, and cement grouting.